Aerobic Methane Oxidation in the Black Sea

This project will determine the role of aerobic methane oxidation in carbon cycling in the Black Sea. Experiments will include rate determinations as well as characterization of in situ populations. Determinations of methane oxidation rates will be carried out as follows. Samples will be taken throughout the water column, and a methane profile will be generated. Previous work suggests that a break in the profile should occur at or near the oxic/anoxic interface. The methane oxidation rate across the break in the profile will be estimated using 14CH4, to determine the site of peak activities. Samples from this depth will then be used in kinetic studies to determine Vm and Km parameters for methane. This information will be used to estimate in situ methane oxidation rates across the zone of maximum activity. The data will then be compared to data generated by other groups concerning carbon cycling in this environment. In situ populations will be characterized as follows. Antigenic and electron microscopic methods currently being developed, will be applied to samples from the zone of maximum activity to obtain relative distributions of the different classes of methanotrophs. Samples from the same locations will be used to set up both batch and chemostat enrichments, and aerobic methanotrophs will be isolated and characterized. These isolates will be compared to existing strains as well as the in situ populations.